Real-Time Measurement of Shear Zone Development in Soil Models Using Time Domain Reflectometry

***
9908342
Pierce
The objective of this research is to develop a time domain reflectometry
(TDR)-based method of detecting and measuring, in real-time, the development of
internal shear zones within centrifuge models of soil structures. TDR is
analogous to radar in that voltage is pulsed along a coaxial cable to detect
electromagnetic faults. When a cable is embedded in a deforming geologic
material, the cable shears and reflects a small percentage of voltage. The
ability to measure internal shear zone development during testing will provide
a powerful tool to investigate the behavior of soil subjected to a wide variety
of loading conditions. It will also allow more comprehensive comparisons of
physical model behavior to numerical predictions than currently possible. The
advantages of real-time measurement of internal shear zone development will be
demonstrated through the modeling of overconsolidated clay slopes. Prior
centrifuge studies of overconsolidated clay slopes have shown that sudden
failures involve block-type motion along a distinct failure surface. In
addition to the benefits provided by the instrumentation aspects of this
project, the investigators will evaluate the effects of grain size, soil shear
strength and stiffness, and the use of grout on TDR measurements in soil.
Finally, the results of this work will aid in the development of field use of
TDR in soils.

The project is divided into four main tasks: 1) TDR instrumentation
development; 2) laboratory feasibility testing; 3) centrifuge development
testing; and 4) centrifuge modeling of overconsolidated clay slopes. In the
first task, the investigators will use a modified direct shear device to
determine the effects of soil grain size, soil strength and grout encapsulation
on shear displacement measurements using different TDR cables. In the second
task, the investigators will conduct small- and large-scale bearing capacity
model tests to evaluate the ability of TDR to detect multiple shear zones, the
quality and reproducibility of the data, and the robustness of selected cables
under these conditions. In the third task, bearing capacity tests will be
conducted at the University of Florida using a geotechnical centrifuge with a
radius of 1.85m, a maximum acceleration of 100g and a maximum payload of
approximately 70kg to demonstrate the ability of the TDR system to work in a
centrifuge environment. The accuracy and reliability of TDR measurements will
be evaluated and centrifuge results will be compared to the large-scale
laboratory tests. The final task utilizes the new instrumentation to evaluate
internal shear development in overconsolidated slopes. Long-term and
short-term tests on overconsolidated clay slopes instrumented with TDR cables
and LVDTs will be conducted. The objectives are to determine if internal shear
displacements occur prior to failure; if shear displacements can be detected
prior to surface movement; and how the location of these displacements relates
to the internal stress-state of the slopes.
***